Anaerobic Dehalogenation and Its Environment Implications August 30- September 4, 1992, University of Georgia, Athens GA

This application is a request for partial support of a conference entitled "Anaerobic Dehalogenation and Its Environmental Implications" to be held at the Georgia Continuing Education Center, University of Georgia, Athens, GA. The tentative dates of the conference are Aug. 30 to Sept 4, 1992. Additional support for the conference is being request from the Environment Protection Agency, the Department of Energy, the National Institute for Environmental Health Sciences, and General Electric Company, Corporate Research and Development. The Co-Chairs of the conference are Dr. John Rogers, EPA, and Dr. Dan Abramowicz, General Electric. The Organizing Committee of the conference consists of Drs. Hugh Russell, EPA, Joe Suflita, Univ. Oklahoma, Lily Young, NYU Medical Center, and Alexander Zehnder, Wageningen. %%% Recent exciting developments in microbial mediated dehalogenation of toxic contaminants and interest in biomediation as a strategy for environmental clean-up underscore a need for an international conference on these new developments. This conference will focus specifically on microbial dehalogenation processes with the aim of integrating and advancing our understanding on this process.